Doctoral Dissertation Research in Sociology

Scientific findings are treated as more certain and less controversial as they migrate downstream, that is, as they are interpreted and applied by actors increasingly removed from the author's specialty area. Downstream actors can include the press or the courts, who can present or apply originally tentative findings as though they were engraved in stone. This process, however, can be retraced. Broadly concerned with toxic health risks and more specifically focusing on two case studies--the controversies linking spermicides and birth defects and aspirin and Reye's Syndrome--this doctoral dissertation project, will move "upstream," reconstructing authors' publication decisions. Open-ended interviews with both case-study (7-10 principals for each case) and main sample subjects (a snowball sample of 40 epidemiologists who have published studies linking environmental exposures with toxicity in humans) will elicit information about the actors' non-cognitive interests (that is, the social, economic, and political stakes in the outcomes), considerations, and contingencies that attend the decision to launch a new truth claim through publication. In addition, a multi-tiered discourse and content analysis will explore responses of the courts, the press, and the scientific community in the two case studies. This project will contribute to the advancement of sociological knowledge about the social construction of scientific facts, external influences on adherence to the "norms of science," and the responsibilities of scientists for others' use of their work. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.